Design, Evaluation, and Modeling of Distributed Database Systems

This study will build on previous work and expand the 'Concurrency Control and Recovery Algorithms for Distributed Transaction Processing Systems' (CARAT) testbed for additional performance studies. Some of the research questions to be addressed include: the integration and interaction of protocols and mechanisms for concurrency control, data distribution, replication, and recovery; the design and performance evaluation of integrated distributed systems; and the application and validation of analytic performance modeling techniques for real distributed systems with attention to the extensions necessary to handle shared resources and serialization delays.